Densely Charged Polymers

A new series of polymers has been discovered based on polyvinylpyridine containing pendent allyl radicals and anions fully substituted with pyridinium cation groups. These "densely charged" polymers show interesting properties. They are remarkably stable. The dry polyallyl anions are not conducting, but the polyradicals have electrical conductivity in the semiconductor range. A new polymeric structure is proposed, which will be prepared and may have interesting conduction and photoconduction properties. The polymers may also have specific ion-exchange properties. The research deals with the preparation and characterization of a number of such polymers with varying degrees of crosslinking. The electrical properties of these polymers will be tested, and an important part of these tests will be their behavior as electrode-coating materials. This grant is being funded under the Materials Chemistry Initiative.